Ethical and Professional Issues in Computing

9353907 Johnson The aim of this project is to engage undergraduate faculty in a set of activities that prepare them to teach courses or course modules on professional and ethical issues in computing. Participants attended a 5-day workshop during the summer of 1994. Follow-up activities include ongoing electronic communications among participants and the director, as well as a 2-day meeting during the spring semester of 1995. ***